NSF Collaboration Theory and Coordination Technology Grantee Workshop

This is a proposal to conduct a workshop composed of NSF grantees whose awards were made in the two years of competitions under the Coordination Theory and Collaboration Technology (CT2) Initiative. Three additional grantees whose work is closely related are also included. The total number of grants involved is twenty. The purposes of the workshop are: First, to provide a forum for the exchange of knowledge in the form of perspectives, findings, methods and theory for this young, interdisciplinary field. Second, to provide an opportunity for the field to coalesce and grow. While certain subsets of the community of researchers mingle at various professional meetings, as a whole, these investigators do not have regular contact. The workshop provides an opportunity to establish an identity for the area of work and to plan subsequent activities. Third, this provides an opportunity for the research from these 20 projects to be made more visible to the Washington based research funding and policy community. This workshop represents a planning opportunity for the IT&O Program. The future research agenda for CT2 funding and community building is an important part of the workshop program. The workshop is held on June 3-5, 1991 in Washington, D.C. A workshop report will be prepared and made available through publications and in response to requests.